Order and Chaos in Classical and Quantum Mechanics

Proposed research will continue to develop and apply the methods of nonlinear dynamics to atomic absorption spectra. Quantum signatures of bifurcation, the limits of closed-orbit theory and applications to semiconductor microjunctions will be studied.